Studies of Adiabatic Shear Bands in Titanium

This award is to experimentally study the development of adiabatic shear bands in titanium alloys and in commercially pure titanium. This investigation will include both mechanical testing and microscopic studies by transmission electron microscopy. It will also measure the temperature rise in the regions of very intense deformation.